Algorithms for VLSI Design

This work is theoretical but motivated by practical considerations. Areas studied are design aids for VLSI and VLSI algorithms. In the former the principal investigator studies optimal algorithms, heuristics, and multiple solutions for the rectilinear Steiner minimal tree problem. He is also pursue new questions in his study of optimal parallel prefix circuits. These include: extending the class over which he can optimize, finding new applications of the parallel prefix method of computation and adapting the optimizer to an existing design tool. In VLSI algorithms, he is continuing his investigation of finding circuit algorithms that are worth being cast into silicon. This is an expansion of his 1-selection algorithm work, and includes lower bound proofs of algorithms.